Cascade Topology Seminar

Abstract

Award: DMS-0090101
Principal Investigator: Steven A. Bleiler

This award will provide partial support for speakers and others at
semiannual conferences in the series known as the ``Cascade Topology
Seminar,'' over a three-year period beginning in 2001. These
conferences will be held at various universities in the northwestern
United States and southwestern Canada, including the Universities of
Oregon, Washington, and Puget Sound, and Boise, Portland, and Oregon
State Universities. Typically there will be half a dozen principal
speakers on topics ranging widely over geometry and topology, the
majority from outside the home institutions of the Seminar, and more
than fifty participants altogether, roughly half of them faculty and
half of them graduate students, as well as an occasional undergraduate
student. Participation by younger mathematicians, by women, and by
underrepresented minorities is encouraged.

The mathematics presented in meetings of the Cascade Topology Seminar
ranges widely over topology and geometry. Topological issues include
algebraic and geometric methods for describing and characterizing
spatial problems such as the challenge of recognizing whether two
knotted curves in three-space are essentially identical. Geometric
topics addressed in the Seminar include differential geometry, which
emphasizes measures of the curvature of spaces and the consequences of
curvature for analytic problems, as well as algebraic geometry, which
has its roots in the study of families of solutions to polynomial
equations.
Abstract

Award: DMS-0090101
Principal Investigator: Steven A. Bleiler

This award will provide partial support for speakers and others at
semiannual conferences in the series known as the ``Cascade Topology
Seminar,'' over a three-year period beginning in 2001. These
conferences will be held at various universities in the northwestern
United States and southwestern Canada, including the Universities of
Oregon, Washington, and Puget Sound, and Boise, Portland, and Oregon
State Universities. Typically there will be half a dozen principal
speakers on topics ranging widely over geometry and topology, the
majority from outside the home institutions of the Seminar, and more
than fifty participants altogether, roughly half of them faculty and
half of them graduate students, as well as an occasional undergraduate
student. Participation by younger mathematicians, by women, and by
underrepresented minorities is encouraged.

The mathematics presented in meetings of the Cascade Topology Seminar
ranges widely over topology and geometry. Topological issues include
algebraic and geometric methods for describing and characterizing
spatial problems such as the challenge of recognizing whether two
knotted curves in three-space are essentially identical. Geometric
topics addressed in the Seminar include differential geometry, which
emphasizes measures of the curvature of spaces and the consequences of
curvature for analytic problems, as well as algebraic geometry, which
has its roots in the study of families of solutions to polynomial
equations.